RUI: Magnetic Studies of Carbon Encapsulated Nanoparticles

9706870 Parvin This project explores the magnetic behavior of carbon- encapsulated magnetic particles. The research involves synthesis, purification, magnetic extraction, and structural and magnetic characterization of the particles. The magnetic particles (carbon-coated alloys of iron-transition metals, cobalt-transition metals, nickel-transition metals and iron-rich rare earths)are synthesized in a modified low carbon:metal ratio fullerene arc chamber in which the formation of carbides are minimized. Characterization of the particles includes particle size distribution analysis and composition, structural analysis using transmission electron microscopy and X-ray diffraction, and Mossbauer spectroscopy. Hysteritic and temperature-dependent magnetic response is measured over a wide range of magnetic fields and temperatures. It is a collaborative project between San Jose State University (particle characterization) and Northwestern University (particle synthesis). %%% Carbon-encapsulated magnetic particles are of interest because they combine corrosion protection from the carbon coating and possible unique magnetic properties based on the type of metal alloy encapsulated. ***